International Trvael Grant for the Second World Congress of Herpetology to be Held in Adelaide, Australia - December 29, 1993 - January 6, 1994

9312300 Moll This proposal requests support for the travel of graduate students, post doctoral students and young investigators to attend and present their research at the Second World Congress of Herpetology in Adelaide, Australia. Attendance at this meeting, which covers a variety of presentation on the biology, ecology and biodiversity of amphibians and reptiles, would be valuable to these young scientists. ***